Bayesian Inference, Modeling and Forecasting Techniques in Econometrics

This project continues research on producing improved and new Bayesian econometric methods and applying them in analyzing and predicting economic data. Topics to be pursued include: (1) work on Bayesian learning models and procedures for generating prior densities and models for observations; (2) Bayesian model and forecast combining techniques with applications; and (3) macroeconomic theory and Bayesian macroeconometric forecasting equations. This research should improve existing methods of econometric inference and estimation. The theoretical derivations of information processing rules could lead to a powerful new framework for analyzing statistical information. The Bayesian diagnostic checking procedures developed in this project will prove useful in detecting outliers and departures from specifying assumptions in econometric studies. A predictive test of when to combine and when not to combine forecasts developed under the previous NSF grant will be generalized and applied to economic problems.